The Zoo Exhibit Collaborative -- A Planning Grant

The Indianapolis Zoo, in collaboration with the Metro Toronto Zoo, the Milwaukee Public Zoo, the Phoenix Zoo, the Oregon Zoo and the Fort Worth Zoo will engage in a planning effort to enable the group of zoos to form the Zoo Exhibit Collaborative. The Collaborative will develop a series of traveling exhibitions and collateral materials at member zoos and for the broader zoo and acquarium industry.